A Digital Sky Survey of the North Polar Cap

ABSTRACT York, Donald AST-9405243 This project will produce a detailed digital photometric map of half the northern sky to about 23rd magnitude. This map will be used to select about a million galaxies and 100,000 quasars for which high-resolution spectra will be obtained with the same wide- field special-purpose telescope. The imaging survey will also be used to produce a catalog in five colors of all the detected objects, about 108 galaxies and a similar number of stars, and a million quasar candidates. The survey will then be completed over a five- year period after an initial test year. The imaging data will be assembled into a high-resolution atlas and a lower resolution map of the whole area and those two data sets and the spectra will be published in digital form and made available in a timely fashion to the whole community. The scientific value of such a set of data is vast, and applications range from critical investigations of large- scale structure in three dimensions to the relationships of galaxies with their environment to the faint-end luminosity function of disk dwarf stars. ***